Light Force Manipulation of Group III Atoms

9732498
Lee
This project uses laser light forces to directly focus gallium and indium atoms. It is proposed to demonstrate that light forces can modulate the atomic density and provide a controlled growth of quantum wire and quantum dot structures in molecular beam epitaxy. The work will have significant impact on the field of optoelectronics and on the physics of heterostructures.